Thermomechanical Analysis of Functionally Graded Shape Memory Alloys

This research program addresses functionally graded thin film shape
memory material (nickel titanium) being produced at UCLA. Shape
memory alloys have the property that they return to a memorized
shape when heated. The material developed at UCLA has the unique
capability of two-way actuation, that is it returns to a second
shape when cooled. This project will develop a thermomechanical model
for this new material, consisting of a thermal model, a mechanical
model, a constitutive relation, and a phase transformation model.

This research will enable the design of shape memory alloy devices.
For example, it may make it possible to produce small devices on the
surfaces of aircraft to reduce drag or control flight. It will enable
the development of new MEMS (micro-electro-mechanical systems)
devices. This advancement may be especially valuable in biomedical
applications since nickel titanium is biocompatible.